Floer Theory in examples of interest to Mirror Symmetry

Abstract

Award: DMS 1108397, Principal Investigator: Garrett Alston

Mirror symmetry is an exciting branch of mathematics that is concerned with duality between the symplectic and algebraic geometry of Calabi-Yau manifolds. There are two complementary conjectures that purport to explain this duality-Kontsevich's Homological Mirror Symmetry conjecture (HMS) and the Strominger-Yau-Zaslow conjecture (SYZ). The principal investigator aims to study mirror symmetry in the context of these conjectures by studying explicit examples. First, an investigation of the manifold mirror to the quintic threefold will be undertaken. The PI will search for objects on the mirror manifold that exhibit behavior similar to a certain class of Lagrangian submanifolds on the quintic. This will provide a direct and concrete illustration of HMS. In conjunction with this work, a study of Floer cohomology of Lagrangians in K3 surfaces will be undertaken. This work will exploit explicit Lagrangian torus fibration constructions of Gross, Castano-Bernard, Matessi and others, which in turn are inspired by the SYZ conjecture.

Algebraic geometry and symplectic geometry are deep and important fields whose origins go back hundreds of years. The questions and ideas arising from these fields have inspired many mathematicians and physicists and led to great scientific advances. Mirror symmetry promises to add to this legacy. Mirror symmetry has its roots in string theory and today is an important branch of physics. To mathematicians, mirror symmetry is an exciting and tantalizing subject because it hints at a link between algebraic and symplectic geometry. It is often these types of links-links between different subjects-that lead to breakthroughs. The goal of this project is to discover links between algebraic and sympletic geometry by applying newly developed theory and techniques to certain examples that are of central importance to mirror symmetry.